Collaborative Research: RII FEC: Equitable Nature-based Climate Solutions

This project engages stakeholders to drive research and workforce development in the design and implementation of nature-based solutions (NbS). The research will be conducted around three living hubs in New Hampshire (NH), Rhode Island (RI), and Kentucky (KY). The project will make major contributions to decision-making about NbS over the next decade. Given the project's location, it will have a direct impact on populations in the three living hubs. The project's community-engaged, transdisciplinary approach will empower community members as change agents for increased natural hazards resilience. The project has the potential to change the national and international paradigms for designing and implementing NbS. The research will contribute to improved decisions about NbS in the three jurisdictions and help to address the urgent global need for improved decision tools for natural hazards resilience. This research will also build human and social capital through transdisciplinary knowledge transfer, as well as training and mentoring of undergraduate and graduate students, post-docs, and early career faculty.

The overarching goal of the Equitable Nature-based Climate Solutions (ENACTS) project is to understand and quantify the influence of NbS on society and to conceive design principles and best practices. ENACTS builds capacity through new research infrastructure to identify novel methods to use NbS to enhance resilience to natural hazards. The research, supported by local knowledge, coupled with integrated social and natural sciences, engineering, and design, will create an ecosystem of academia, government, and local communities to support more informed NbS decisions. The project will make transformative advances in our understanding and capacity in designing and implementing NbS, leading to increased community resilience to environmental variability. This work will generate new knowledge in 1) the risk-scapes and the NbS environmental, social, and economic effect-scapes across the three living hubs 2) the level of community involvement in past and current NbS projects and its influence on NbS decision-making; 3) the preferred NbS landscape designs for different stakeholders; 4) the optimal siting, sizing, and timing of NbS implementations in the three living hubs; and 5) the effectiveness of various behavioral interventions, including visual aids (e.g., augmented reality tours), scientific knowledge about the optimum solution (e.g., optimization model), and consensus building activities.